Travel Support for the DELOS-NSF Workshop on Personalisation and Recommender Systems in Digital Libraries on June 18-20, 2001 in Dublin, Ireland

The proposal requests travel expenses for US researchers to participate in a DELOS workshop on "Personalisation and Recommender Systems in Digital Libraries" to be held at Dublin City University in Dublin, Ireland June 18-20, 2001. DELOS is a major forum for and organizer of digital libraries research and planning activities in Europe. It is funded by Information Societies Technologies (IST) 5th Framework Programme of the European Commission. This proposal seeks travel support for six participants from the American research community.

The workshop continues the planning and research agenda put forward by the multi-year NSF-EU working groups' process jointly sponsored by CISE/IIS, SBE/INT and the European Union. In the groups' final report "An International Research Agenda for Digital Libraries", increased levels of collaboration and interaction was seen as critical to building multi-lingual, multi-national digital libraries.